Research Experiences for Undergraduates in Mathematics at Indiana University

Research Experiences for Undergraduates in Mathematics at Indiana University will provide twelve undergraduate mathematics majors with a research topic and a research environment so that they have an active eight week experience involving mathematical research. The students will face the intellectual challenges of learning more about a mathematical topic and developing approaches and solutions for unsolved
questions at a research level. This research experience will enhance the students' perspective on mathematics and provide impressions of how mathematical knowledge is evolving. It will also be a valuable
experience in actively finding results and communicating their work to their peers.